Conference on Metalloprotein and Protein Design; July 29-31, 2005; Chicago, IL

Sonya Franklin, Department of Chemistry, the University of Iowa, along with co-PIs David E. Benson of Wayne State University and Brian Gibney of Columbia University, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program to organize a new conference on metalloprotein and protein design to be held July 29-31, 2005 in Chicago, Illinois. The metalloprotein and protein design disciplines have much to offer each other, and this venue will be a point of departure for additional interactions between these important biomolecular areas in future years.

This Metalloprotein and Protein Design conference will include a diverse pool of interdisciplinary scientists and will build relationships between bioinorganic, protein structure, and computational experts. The meeting will serve as a launching pad for additional exchange of ideas between these biomolecular design communities.